Calculus in the Liberal Arts Curriculum/Multidisciplinary Resources for College Calculus

A calculus curriculum is being developed that uses the computer algebra system MAPLE in conjunction with writing assignments that are designed to promote student learning. The courses will be organized in diagnostic learning units and will require students to keep a journal, which will be evaluated regularly by the instructor. This system of ongoing feedback between student and teacher will enhance self- evaluation on the part of the student.